Research Experiences for Undergraduate Interns at the Santa Fe Institute

Students in this program are immersed in the Santa Fe Institute's multidisciplinary and multigenerational scientific environment; in this context they team up with one or more mentors to work on meaningful complexity science research problems to which they can make a significant contribution. The aim of the program is to enrich the academic and practical career preparation of these students through exposure to a transdisciplinary approach to science. Typically this approach is used to gain a better understanding of complex adaptive systems in the biological, social, and physical sciences.